Lighting and Electrical Systems Classroom and Laboratory

Understanding lighting and electrical power distribution is critical in today's high-tech, energy conscious, building environment. The wide spread dependance on electronic media has emphasized the need for quality, well designed lighting to increase visibility and productivity, as well as reliable electrical power distribution and communication systems. The Lighting and Electrical Systems Classroom and Laboratory will enhance the education of 500 students over the next five years in the areas of lighting and electrical systems for buildings. With the numerous lighting systems, lighting controls data acquisition and computing equipment of the facility. Students will be able to see lighting fundamental applied in state-of-the-art lighting systems. Students will be able to evaluate visually and with actual measurements and mathematical models of lighting. To enhance the student's understanding of building electrical distribution, the present project includes actual components of electrical distribution equipment, connected and installed identically to an actual application but not energized. The electrical and lighting manufacturing industry is providing strong support for the project. They have provided letters of intent to donate almost $37,000 worth of lighting and electrical distribution equipment.